Design of Targeted Toxins with Enhanced Membrane Translocation

The objective of this project is the quantitative analysis of
receptor-mediated cytotoxin trafficking dynamics in order to
develop a highly selective method for treating diseases by
targeted drug delivery. The project outlines a plan for
quantitatively assessing the effect of targeting molecules on the
transport of toxins to the interior of animal cells. This
project continues the general theme of using peptides to modify
cellular processing of immunotoxins. Specifically, using
endocytosis to import drugs in tandem with endosomal
membrane-disrupting peptides is proposed as a means for augmenting
the delivery of a therapeutic to its intracellular target (e.g.
ribosomes).